NSF/USDOT Partnership for Exploratory Research - ICSST: Dynamic and Stochastic Vehicle Dispatching with Time Dependent Travel Times: The Next Generation of Algorithms

NSF/USDOT: Dynamic and Stochastic Vehicle Dispatching with Time Dependent Travel Times: The Next Generation of Algorithms
Researchers have long understood that stochastic and time-dependent travel times, stochastic service or handling times and stochastic demand arrival patterns render schedules developed using static assignment models sub-optimal and often infeasible. Nonetheless, the development of alternative models and solution methods has proceeded at a relatively slow pace. The costs associated with these infeasibilities can be very high and are borne by commercial vehicle operators, their customers and society at large.

This research represents a new generation of routing and scheduling models, ones that explicitly incorporate time-dependent and stochastic travel times, dynamic service requests and stochastic service times. The applications of interest are local truckload trucking operations, local less-than-truckload operations, local pickup and delivery operations and service fleets.